Dissertation Research: Archaeology of the Viru Valley, Peru

Burger Under the direction of Dr. Richard Burger, Mr. Thomas Zoubek will collect data for his doctoral dissertation. He will conduct archaeological excavation at the site of Huaca El Gallo/Huaca La Gallina which is located in the Viru Valley on the northern coast of Peru. The site contains two large stone-faced platform mounds, two sunken circular courts and extensive habitational remains. At least one unlooted cemetery is associated with the mounds and domestic structures. The site itself dates to the Formative period, between 1800 and 50 BC and therefore documents the rise of complex society in Peru. In the planned fieldwork, Mr. Zoubek and his colleagues will construct a precise map of the site. They will then excavate a representative sample of each type of household and several domestic structures will be dug in their entirety. Refuse areas will also be sought out for excavation in order to establish stratigraphic sequences. Burials and undisturbed tombs will also be examined. The cultural and skeletal, as well as floral and faunal materials recovered will be analyzed. The archaeological situation of the coast of Peru is interesting for several reasons. First the Andes represents one of the few regions of the world where highly complex stratified societies appear to have independently evolved. During the Initial period large ceremonial structures were built and maintained. Secondly, the region is important because there are indications that, in some parts of the Peruvian coast at least, this development took place in a relatively egalitarian social context. Archaeologists generally believe that political centralization as indicated in monumental construction either results from or is intimately related to the emergence of status inequality; the Peruvian case however may disprove this hypothesis. Relatively little is known about household organization at such sites since archaeological work has concentrated on the more imposing monumental structures. Mr. Zoubek's work will focus on the former and provide direct insight into social organization. This research is important for several reasons. It will provide data of interest to many archaeologists. It will increase understanding of how complex societies develop and will also contribute to the training of a promising young scientist.